Surface Ocean Oxygen Fluxes

The purpose of this research is to determine the net biologically produced oxygen flux and extent of nutrient recycling in the surface waters of the ocean using the concentrations of oxygen, argon, nitrogen and the &180 of molecular 02. These tracers will be sampled monthly for one year at the JGOFS time-series station near Hawaii and incubation methods will be developed for determining the community respiration rate and respiration isotope fractionation factor. These studies will take advantage of the high level of precision that has been developed so far in Dr. Emerson's upper ocean research. Measurements from the subarctic Pacific during the summers of 1987 and 1988 indicated that the net biological oxygen production determined by his methods agree with summertime dissolved and particulate nitrogen mass balances. The &180-02 measured in surface ocean suggested a new production ratio of 0.2 which is in accordance with the new production estimated derived from gas concentrations and 14C incubation estimates of primary production. The respiration isotope fractionation factor in the upper thermocline appears to be 6-7% less than that observed in the euphotic zone. Preliminary results at the JGOFS time-series station suggest similar isotope trends.